The Accidental Scientist: Internet Resources Exploring Science in Everyday Life

The Exploratorium will develop a series of Internet resources on three popular topics -- cooking, gardening, and making music -- to encourage users in science education activities in relation to daily activities. The three-year project will include the development and testing of resources that explore the science behind these topics, using the notion that we all, consciously or not, are "accidental scientists" who engage in the scientific process in the course of everyday life. Target audiences include general public adults and youth. Components of the site will feature aspects of cooking, gardening, and making music that are intended to appeal to diverse communities. The resources will also serve formal education through the Exploratorium's national and local network of educators.